Presidential Young Investigator: Research in Quantum Elec- tronics, Gaseous Electronics and Material Processing

The research activities will be in two areas: study of new laser sources and electron beam processing of microelectronic materials. Laser action is investigated in negative glow discharges in which three body electron recombination is the excitation mechanism of the laser upper levels. Electron beam discharges are used to create dense plasmas having low electron temperatures (KT =0.1-1 eV) in which large recombination rates can be obtained. The goal of this project is to demonstrate both pulsed and true cw recombination laser action in an electron beam excited plasma and to study the excitation mechanism. In the second area of research, dc electron beams will be used to demonstrate large area etching and recrystallization of microelectronic films. The first experiments will focus on studying electron beam induced etching of silicon and SiO;i2. Etch rates, selectivity, and anistropy of this new etching technique will be investigated. Finally, a multikilowatt line source glow discharge electron beam is being developed to recrystallize polysilicon films over large areas for SOI applications. Polysilicon film will be recrystallized and its properties evaluated and compared to those films recrystallized with other techniques.